The Tenth International Conference on Surface Modification Technologies, Singapore, September 2-4, 1996

9632725 Sudarshan Partial travel support is provided to allow a group of young US researchers and advanced graduate students attend the Tenth International Conference on Surface Modification Technologies in Singapore. The group will also visit some industrial operations and research laboratories in the region for the purpose of developing collaborative research projects and to evaluate opportunities for technology transfer. ***